Designer Molecules for Biosensor Applications

EIA-0231601
Bhubaneswar Mishra
New York University

Designer Molecules for Biosensor Application

A two-day workshop to explore the feasibility of the state-of-the-art and potential short-term and long-term technology that can be used to quickly detect pathogenic microorganisms is being held at the Cold Spring Harbor Laboratory. In particular, merits of various technologies, based on genomic-expression (mRNA), genome structure (DNA/RNA), protein structure an other physical and geometric properties are compared. The multi-disciplinary collaborations of computer scientists, biologist, engineering, and biochemist is expected to in order to facilitate and advance in science of protein arrays for understanding cellular processes, detectors for monitoring single cells, and monitoring of pathogenic agents.